Mathematical Sciences Research Equipment

The Department of Experimental Statistics at Louisiana State University will purchase a large capacity workstation with fast numerical computation speed which will be dedicated to support research in applied statistics. The research is varied, reflecting the range of research interests within the Department. Escobar plans to investigate new experimental designs for an area of great interest to industry, accelerated reliability testing. LaMotte plans to study techniques for generalizing model fitting in regression analysis such that variable selection and outlier identification proceed simultaneously. Moser plans fundamental research into the nature of factor analysis, investigating robust estimation and diagnostics. The equipment will be used to support other research as CPU time permits.